DATA: Dena'ina Archiving, Training, and Access

ABSTRACT
OPP-0326805
PI: Helen Aristar-Dry, Veronica Grondona, Gary Holton
Institution: Eastern Michigan University

This is a cooperative project between the Alaska Native Language Center at the University of Alaska and the LINGUIST List program at Eastern Michigan University to preserve Arctic Languages. This proposal creates the "DATA" (Dena'ina: Archiving, Digitization, and Access) project to digitize existing collections of Dena'ina documentation using the standards and software developed by The LINGUIST List as part of the E-Meld project. The E-Meld project had developed and implemented recommendations of digital best practice for linguistics data. Through E-Meld the DATA project will create long-lasting archival formats and standardize linguistic data digitization of Dena'ina. In addition, the proposal will train both Native and non-Native students in linguistic research practices, applied computational linguistics, and linguistic analysis for the future preservation and revitalization of Dena'ina. This project will not only facilitate the preservation of Dena'ina for community members, but also standardize the linguistics information so as to make it accessible and useful for scientific computational analyses.

Anna Kerttula
Program Director